Solar System Laboratory Aeronomy by Electron Impact with Emphasis on Terrestrial Processes

In order to understand the details of the way solar energy is transferred to and within the earth's atmosphere it is essential to have a good understanding of the fundamental properties of the various states of the atoms and molecules that exist at each level of the atmosphere. It is also important to develop means to accurately calibrate the instruments that measure the energetics directly in the atmosphere. This program combines laboratory measurements with advanced models of atomic and molecular species to provide basic data to advance research in upper atmospheric processes. Detailed models will be used to simulate the excited night or day upper atmosphere, with particular attention paid to the energy budget. Concurrently, laboratory measurements of the light emitted in a crossed beam collision processes will provide calibrated spectra over a large wavelength region to provide a primary reference data set for the simulations. Electron impact studies of the species N2, 02, NI, OI, HI, NO and ArI will be performed, and energy dependent collision strengths will be obtained through model analysis to allow the construction of collision models capable of producing results for a broad range of relevant conditions. H2 emission will be studied because it can provide accurate calibration of spaceflight and laboratory instrumentation. Also included will be the determination of dissociation and predissociation yields, absolute transition probability tables, and high resolution absorption properties for selected species.